Undergraduate Research Participation in Electrical Engineering

ABSTRACT 9531378 Vetelino The Electrical Engineering Department at the University of Maine will offer ten undergraduate students the opportunity to participate in research. The available research projects include: 1. Microwave Acoustic solid State Sensors, 2. Robotics, Computer Vision and Neural Processing, 3. Communications Devices and Applications, 4. Motion Control, 5. Microprocessing/Instrumentation Applications, 6. Macroscopic and Microscopic Characterization of Metallic Films, and 7. Power Systems Applications. in addition to extensive University of Maine facilities, the students will also have access to facilities at nearby industries such as Bangor Hydro Electric Power and Central Maine Power Companies, James River, Champion and Scott paper Companies, Digital Equipment Corporation and National Semiconductor during the conduct of their research experience.